l_2-homology of right-angled Coxeter groups

Proposal: DMS-0072639

PI: Boris Okun

Abstract

Okun proposes to calculate l_2-homology of right-angled Coxeter groups. In
a recent joint work (still in preparation) with M. Davis (the Ohio State
University) we calculated l_2-homology of some right-angled Coxeter groups
and, in particular, proved Singer's vanishing conjecture for right-angled
Coxeter group manifolds of dimension <5. As a corollary we get that Hopf's
conjecture about the sign of Euler characteristic of aspherical manifolds
is true for non-positively curved (in the sense of
Aleksandrov) 4-dimensional cubical manifolds. Our calculations in higher
dimensions are consistent with Singer's vanishing conjecture. Several
conjectures, related to Singer's vanishing conjecture are discussed.

Coxeter groups, also known as reflection groups, play an important role in
various branches of mathematics. The simplest examples of such groups come
from Escher type tilings - tilings of the hyperbolic plane by convex
polygons. The higher dimensional analogs of these give a large class of
examples in topology and geometry of manifolds. The proposed research
concentrates on several longstanding conjectures, as applied to these
examples. A surprising corollary of this research is an explicit estimate
for the genus of a graph - the minimal genus of the surface in which the
graph can be embedded.